SBIR Phase II: Innovative High Throughput Automated System for Individualized Poultry Vaccination and Recognition and Removal of Unhealthy Chicks

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project has the potential to help enhance disease resistance in poultry and increase yields due to the delivery of only healthy, fully vaccinated chicks to farms. These healthier chicks will reduce the need for antibiotics in poultry, aiding to combat antimicrobial resistance. This technology has immediate applications in other food animal industries and fisheries, and allows for data capture on numbers of animals and types of treatments given. Broader applications would include any image capture and analysis that relies on analytics to identify target areas for delivery of substances to live animals or humans.

This SBIR Phase II project will allow for the advancement and commercialization of imaging technologies for the use of screening and targeting live animals. This proposal brings innovation in the care of food animals allowing for producers to move away from flock health and focus on the care of individual animals. This will be a dramatic change for the poultry industry, but is necessary in the face of antibiotic removal to be able to improve the current vaccination efficiencies and screen chicks for health status. Individualized care is currently not possible due to the high throughput needed to keep pace with large scale commercial hatchery operation. The technical challenges this proposal will overcome include 1) the safe and effective handling of chicks in an automated system that can process 100,000 chicks per hour, 2) the development of imaging systems for health checks and target recognition, 3) the delivery of the appropriate dose of vaccine with the correct amount of agents (virus, bacteria, parasite, and other agents) while not damaging the agents during delivery, and 4) development of a system that is rugged and robust enough to survive in a hatchery environment.